Refinement of ZAF, 0 (pz) a-Factor Corrections for the Quantitative Electron Microprobe Analyses of Geological Materials

This project is directed towards establishing improved analytical procedures for accurate electron microprobe analysis of major, minor and trace elements in non-conducting materials, with special emphasis on silicates, oxides and carbonates of interest to earth and materials scientists. The result will be a set of correction factors for reducing the characteristic X-ray intensities that are directly measured by the electron probe to accurate quantitative chemical compositions of such materials. Increased accuracy in quantitative microanalysis is of interest for all fields of science dealing with small-scale chemical variations in solid materials.